Adhesion and Fusion of Skeletal Myoblasts

Skeletal muscle is a syncytium ensuing from the fusion of myoblasts. Myoblast fusion is a complex process, involving differentiation, myoblast-myoblast adhesion, and cell union. Adhesion precedes and is necessary, but not sufficient, for fusion, indicating separate mechanisms mediate the two events. The molecules mediating adhesion are being elucidated and two cell surface glycoproteins, N-CAM and N-cadherin, have been shown by us to cooperate in promoting myoblast contact during membrane union. N-cadherin seems to play the dominant role, perhaps reflecting its intracellular linkage to the cytoskeleton via proteins currently being identified by us. Little is known about membrane union, except that it involves proteins, calcium, and a metalloendoprotease. One of our goals is to identify a putative myoblast "fusion protein". Our long-term goal is to develop a comprehensive molecular description of myoblast fusion, which will enhance our understanding of skeletal myogenesis. It may also optimize the potential success of myoblast transplantation as an approach to gene therapy, since long-term survival of donor myoblasts carrying new genes depends upon their fusion with recipient muscle. Our past approach has relied heavily on antibodies, but we now need to apply molecular biology methodologies to our research. The proposal is designed to re-tool our lab for this purpose.